The Implementation of Parallel Prolog Using Stack Segments on Shared-Memory Multiprocessors

There has been much interest in the development of parallel inference computing machines for higher performance computation. The implementation of parallel Prolog is an important and timely research topic. This investigation proposes to simulate parallel Prolog on networks of processors such as CM and ZAPP. In addition, the system will be implemented on an MIMD (Multiple Instruction Stream and Multiple Data Stream) multiprocessor. A working implementation of parallel Prolog could provide useful experience in developing parallel Prolog programming techniques, determining appropriate application areas, and finding deficiencies in the current execution model.